Presidential Young Investigator Award/Laser Spectroscopic Detection of Transient Intermediates

This Presidential Young Investigator Award given in the Organic and Macromolecular Chemistry Program provides support for the work of Dr. Peter Chen, Harvard University. This work is focused on exploring the applications of gas-phase laser spectroscopy to solve fundamental problems in organic reaction mechanisms. Isolation of transient reaction intermediates under collision-free, low temperature conditions will be carried out. Particular attention will be given to thiazolium ylides, antiaromatic hydrocarbons, and halocarbenes. Powerful spectroscopic tools based on mass spectroscopic and photoelectron detection will be used to examine these species. Not only important structural information, but thermodynamic and spectrosopic characteristics will result. These studies will delve deeply into the structure of reactive intermediates and the chemical and physical processes leading to them.